Women in Science and Engineering: Improving Participation and Performance in Doctoral Programs

NOTE: This is a collaborative project with the Pennsylvania State University. Hence, the same abstract is cited with both projects. The study aims to determine the departmental conditions and programs that do and do not work to improve the participation and performance of women in doctoral education--thus addressing the critical national problem of human resources in science. Its purpose is to identify and assess organizational factors--such as entry into area of specialty, inclusion in or exclusion from the culture of the workplace, and the role of evaluative factors--that affect the participation of women in doctoral education, their retention, reported satisfaction, publication productivity, and job placement. The project is a cross disciplinary analysis of women's success in doctoral education in physics, chemistry, biology, electrical engineering, and computer science, focusing upon the departmental environment. The study employs in-depth interviews, institutional analyses, and surveys of quantitative indicators at three types of departmental sites: (1) departments with significant programs in place to remedy problems women face in academic science--the vantage point of programs; (2) departments that have made objectively notable improvements in the participation of women (in the absence of programs); and departments that have made no progress in raising the enrollment levels and graduation rates of women students--also the vantage point of outcomes. The research is relevant to policy intervention at the doctoral stage of science education for women; (1) it encourages creation of a critical mass of women faculty in academic science and engineering; (2) it revises the image of high level careers in science and engineering for women from an anomalous to a more "normal" role, thereby enhancing the incentive of achievement among younger people.//